Collaborative Research: Mechanisms of resistance and resilience to system-wide loss of a keystone predator in an iconic intertidal community

Diseases that compromise the health of predators can lead to large, abrupt and sometimes unexpected changes in the structure of ecosystems. This project will combine field surveys, manipulative experiments and mathematical models to both understand and predict the ecosystem-level effects of the unprecedented sea star wasting disease (SSWD) outbreak that devastated populations of Pisaster ochraceus, a critical predator, across the West Coast of the United States. Specifically, the project will determine (1) the ecological and environmental factors that promote vs. compromise the resilience of intertidal ecosystems to sea star wasting disease, (2) document the pace and extent of recovery from this major disturbance across the West Coast of the United States, and (3) identify hotspots of resilience to sea star wasting disease that may serve as important conservation targets to preserve these iconic ecosystems. The research will address important societal needs by cross-training undergraduate and graduate students in disease ecology, marine biology, mathematical modeling and biostatistics. Students from underrepresented groups will be recruited broadly from West Coast states. Each summer, four undergraduate students will be trained in rocky intertidal field research techniques. SSWD-focused modules will be developed and used in ecology courses at each institution to emphasize the importance of quantitative and interdisciplinary training for addressing important questions in biology. Graduate students will work with the Oregon Migrant Leadership Institute (OMLI) for migrant workers and their children to create workshops for students about SSWD. The PIs will continue interacting with the media and public groups, and will expand outreach activities through The Nature Conservancy and CoastWatch-sponsored workshops for high school teachers interested in involving students in sea star monitoring to ensure that the results of this project are disseminated beyond traditional academic circles. Finally, a series of model-based interactive web modules will be created as part of this project to illustrate the ecosystem-level effects of sea star wasting disease to the broader public. The studies on this model system will lead to a better understanding of how other ecosystems may resist or be vulnerable to human activities (e.g., fishing, hunting and habitat destruction) that asymmetrically influence top predators.

Diseases that threaten the health of predators can reduce their top-down influence and thus lead to significant changes in ecosystem structure. In 2013-15, sea star wasting disease (SSWD) devastated populations of Pisaster ochraceus, the original keystone predator, along the west coast of North America in one of the most extensive marine disease events ever recorded. This project will leverage this unprecedented outbreak to test and extend keystone predation theory by documenting and explaining the temporal pace, geographical extent, and spatiotemporal co-occurrence of ecosystem recovery from SSWD. The disease event also provides an opportunity to test the resistance and resilience of a well-studied ecosystem at an unprecedented scale. At each of 14 sites, the investigators will quantify processes that underlie potential resistance of the system to loss of sea stars (prey recruitment and colonization, mussel growth, predation intensity, facilitative interactions among sessile organisms, and the effect of alternative predators). In the latter experiments, the PIs will conduct caging exclusion experiments to test the effects of both larger (e.g., birds) and smaller (e.g., whelks) alternative predators on prey recolonization of cleared plots. The investigators will also conduct a novel set of experiments to manipulate factors affecting facilitation of mussels by barnacles and turf-forming algae. All these empirical studies will be used to parameterize modeling efforts that will explore the longer-term and larger-scale implications of these processes, both for this system and for other ecosystems. Specifically, the PIs will fit a novel spatially-explicit metacommunity model to the empirical data in order to determine the relative importance of intraspecific and interspecific resistance vs. resilience mechanisms for the recovery of intertidal ecosystems following a historical, coastal-scale SSWD disturbance.